Shipboard Research Experience for Discover Earth Teachers

98-04773 Barron Funds are requested to support a five day oceanographic cruise to enable a group of "Discover Earth" teachers to learn about oceanographic research techniques and procedures. The cruise will occur in the vicinity of the Georges Bank during the summer of 1998. This cruise will give teachers the experience of planning, executing, and interpreting the results of an integrated scientific study, with the objective of transferring this experience to their classrooms.